Student Professional Development Program in Computer Science and Mathematics

Twenty nine scholarships in the amount of $3125 are available annually to academically talented, low-income students majoring in computer science or mathematics. Several strategies are used to ease the transition from high school to college helping to ensure student achievement and success. These strategies include small class sizes, an emphasis on collaborative learning, a student mentorship program, internship
opportunities with local business and industry, and active student organizations focused on professional development in computer science and mathematics. The program is resulting in increased numbers of students electing to major in the targeted disciplines.